Assessment of Change in College Mathematics Teachers: The ISETL-based Abstract Algebra Project

9355841 Seldon The project will focus on college mathematics teachers and participants from the ISETL-based Abstract Algebra Project. It will assess changes in college matehmatics teachers and link these changes to features of the workshop.